Reinventing Computer Aided Drafting and Design in a Total Modeling Environment While Increasing Student Diversity in Technologies

This project will revise the curriculum in drafting and design in order to ensure that community colleges can educate students to current and projected industry standards in computer-aided drafting and design. An in-depth study of the design process in a 3-D modeling environment and of the new package of skills which the process demands will culminate in the creation and piloting of a new curriculum which will include rapid prototyping and CNC machining. The resulting curriculum manual will be disseminated nationally. In order to insure its successful implementation, faculty and teacher workshops will be conducted and internship opportunities will be provided.